Mechanism of Slip Transfer in the Central Walker Lane

Wesnousky
0001006
The manner in which relative plate motion between the Pacific and North American plate is accommodated along the San Andreas fault system is relatively well known, although 25% of the relative plate motion occurs east of the San Andreas system. How slip is distributed through central Walker Lane and the Basin and Range province is poorly documented. This project will investigate quaternary deposits along the major strike-slip faults in central Walker Lane to define the style, timing and slip rates during the late quaternary. These data will be used to test models and define the mechanics of slip transfer through this important element of the Pacific - North American plate boundary.